Modeling Physics for Ocean Climate Research (WOCE)

Theoretical and numerical studies of subgridscale processes like topographic effects, lateral transport and diapycnal mixing will be undertaken. The emphasis of the study is to develop practical representation of these unresolved processes in global/climate ocean general circulation models.